N2001-The Second International Nitrogen Conference

Abstract
0113863
Galloway

N2001 - The Second International Nitrogen Conference

Production of food and energy increases the amount of biologically active nitrogen that circulates among the world's atmosphere, soils, forests, and waters. The world's natural resources and environmental systems respond to nitrogen enrichment with positive benefits such as increased production of food and timber, and negative consequences, such as eutrophication of ecosystems, regional haze, and global warming. The three goals of this conference are to increase scientific knowledge about N sources and effects; stimulate communication among leaders in N production and consumption; and explore balanced policy strategies by which to increase food and energy production while decreasing environmental impacts.